Raman-Based Fiber Optic Sensor for Anesthetics

9309041 Yager This award will fund research on the use of Raman-based spectroscopy for use in fiber optic sensing of small molecules, including anesthetics. Two methods will be evaluated to determine if they can enhance the Raman signal so that sensing would be possible. The first method will employ elastomeric absorbents to concentrate small hydrophilic molecules. The second method will make use of "photon ring" waveguides to produce the illumination. This study has the potential not only to impact the monitoring of general anesthetics but also it could prove useful in remote environmental monitoring, industrial process monitoring, and workspace monitoring. The use of the photon ring technology to improve the sensitivity of a detector also could have an impact on the biosensor field. ***